NSF Young Investigator Award

This 1992 National Science Foundation Young Investigators (NYI) grant focuses on the development of advanced computational methods for modeling electromagnetic wave propagation within complex heterogeneous medium. In particular, integral equation formulations, vector finite element analysis incorporating radiation boundary- conditions, and new hybrid numerical-asymptotic methods will be the focus for development.